US-UK Cooperative Research: Novel X-ray Methods for Characterization of the Spatial Distribution of Inhomogeneities in Materials

This award will support international collaborative research to be carried out by Dr. Stuart A. Stock, Georgia Institute of Technology, Dr. D. K. Bowen, University of Warwick and Dr. J. C. Elliot, London Hospital Medical College, University of London. The objective of the joint work is to gain understanding and knowledge about the development of x-ray microprobes based on intense synchrotron radiation sources. Application of synchrotron radiation to materials research has been an active and vital field of research and has received attention by a wide range of scientific professionals, including physicists, chemists, engineers, biologists and medical doctors. The proposed work will focus on the development of novel x-ray methods (microtomography, topographic EXAFS, and synchrotron x-ray fluorescent trace element analysis and mapping) and will have a significant impact on the non-destructive characterization of a great variety of material systems. The British collaborators have a strong commitment to the development of state of the art technique in topography, microradiography and microtomography and are international leaders in these areas.